Electron Spin Resonance Spectroscopy in the Undergraduate Curriculum

This project will introduce electron spin resonance (ESR) spectroscopy into the undergraduate chemistry curriculum at the University of South Alabama. ESR is a spectroscopic tool used for research in many different areas of chemistry, ranging from chemical synthesis to the study of magnetic properties of molecules. The instrument will be used in three phases of the laboratory curriculum. In physical chemistry, the type of information obtainable by ESR will be studied using organic radicals as examples. In instrumental analysis, the characteristics of the spectrometer will be studied. The ESR system will also be used to demonstrate the technique of computer interfacing, since the instrument can be driven by computer and the resulting output can be recorded and analyzed by computer. Additionally, the instrument will be used in undergraduate chemistry research projects involving the effects of various ligands on the magnetic properties of transition metal complexes.